Cost Effective Laboratory for a Large General Education Physics Course

A new type of laboratory experience is being developed for a general education physics course primarily based on experiments carried out by students in their own residences utilizing a kit of inexpensive components and directed by a carefully crafted laboratory handbook supplemented by a few video tapes. The tangible results of the project will be a tested evaluated, laboratory course based on this kit of equipment, the professional laboratory manual available in printed and computer readable form, and the videos. These materials will be made available for adoption by other schools. The program will be easily transferable, easily modified, and self- financing in that a net savings of many dollars will immediately result when this laboratory form replaces the conventional form.